NASA/NSF Collaborative Research: Integration of Plant Responses to Mechanical, Thermal, Electrical and Chemical Signals

9416041 Pickard An abundant mechanosensory calcium channel appears able not only to detect mechanical stimuli such as those that initiate gravitropism but also to detect thermal, electrical, and various chemical stimuli. Because it responds to multimodal input with second- messenger output, the channel system seems likely to be an integrator that can engage in feedbacks with many other systems of the cell - and feedback is the hallmark of regulation. It is hypothesized that the mechanical tension required for channel activation is likely transmitted from the relatively rigid cell wall to the plasma membrane system via linkage or adhesion sites which have mechanical connections to the cytoskeleton. Thus, functionally, leverage exerted against any given adhesion site will tend to control channels within a surrounding domain. Reactions initiated by passage of calcium ions through the mechanosensory channels could presumably be more effectively regulated if channels within such a domain were somewhat clustered and if appropriate receptors, kinases, porters, pumps, and some key cytoskeletal anchoring sites were in turn clustered about them. Such arrangements appear likely to play important roles in adapting plant response to environmental signals and stresses and in directing cellular growth and differentiation. Newly emergent capabilities of electronic optical microscopy are well suited for resolving the spatial distributions of many of these cytoskeletal and regulatory molecules in living cells, and for following temporospatial changes in calcium levels and cytoskeletal geometry during challenge by mechanical, thermal, electrical, and chemical stimuli. Moreover, patch clamp technology can be applied in special ways permitting electrical resolution of the cascades and feedbacks these stimuli initiate. Using representative cells from onion (a monocot) and tobacco (a dicot), it is proposed to employ these two complementary technologies to examine how ar chitectural arrangements/rearrangements of macromolecules and ionic fluxes help plant cells react appropriately to the diverse stimuli recognized by mechanosensory calcium channels. ***